JABRWOC -- Java-based Animation: Building viRtual Worlds for Object-oriented programming in Community colleges

The approach used in this project takes advantage of high-level interest in graphics, animation and storytelling. The Java-based Animation: Building viRtual Worlds for Object-oriented programming in Community colleges (JABRWROC) project uses simulation and visualization in a 3D, interactive, animation environment to introduce fundamental, object oriented programming concepts to novice programmers. The objectives are to 1) decrease attrition in introductory programming courses in community colleges, where open enrollment is conductive to high numbers of "at-risk" students, 2) attract students to computer and technology-related majors, 3) improve computer literacy courses to meet computer FITness guidelines defined by the NRC, by reintroducing programming /problem-solving modules, and 4) provide professional development for community college faculty in the use of innovative technology. Implementation occurs in three phases: developing and modifying instructional materials including lab exercises for traditional and returning learners; pilot testing in on-campus and distance learning classes, and dissemination. The potential impact includes over 6000 community college students on three campuses over the 3 year period. Urban students, specifically women and minorities, will be the primary audience for these new course materials. The assessment and evaluation will include persistence and attrition rates, student achievement, attitude surveys and interviews with instructors and students.